THE BRAIN: A TRAVELING EXHIBIT

The Franklin Institute Science Museum in Philadelphia, PA requests NSF support for a 5000 sf traveling exhibit on The Human Brain that is being developed for the Science Museum Exhibit Collaborative (SMEC). This exhibit offers an integrated understanding of how physiological structures in the brain relate to vital life functions and human behaviors. Senior members of the exhibit development team include distinguished neuroscientists who are locally available and committed to The Franklin Institute project; the team is also advised by a large panel of nationally recognized experts in brain research. Like all SMEC exhibits, The Brain will be seen by over two million Americans during a 32-month tour to eight major cities across the United States. During the 1990's -- "The Decade of the Brain" -- the proposed exhibit project is important and timely in its ability to inform the public about new ideas and discoveries in the many sciences of brain research.